Shipboard Scientific Support Equipment

ABSTRACT

03 July 2012
Proposal Number: 1219438
Institution: Scripps Institute of Oceanography
PI: B. Appelgate
Co-PI: Z. Kelety

This proposal requests Shipboard Scientific Support items for the vessels operated by Scripps Institute of Oceanography (SIO) namely; the R/V ROGER REVELLE, MELVILLE, NEW HORIZON, and ROBERT G. SRPOUL. Requests include: (1) a new fire detection system for NEW HORIZON, (2) a new oily water separator and reverse osmosis water maker for SPROUL, and (3) new hanging blocks and a closed circuit television system for the REVELLE. This award also includes computerized stability program up-grades for all vessels in the Academic Fleet. All items requested will enhance safety, bring the vessels into current regulatory compliance, or provide greatly improved science support capabilities.

Broader Impacts: SIO vessels support federally-funded scientific research throughout the world’s oceans and routinely expose graduate and undergraduate students to seagoing oceanography. SIO participates in a large number of outreach programs including open house events, student tours, and hosting of government officials, dignitaries, and science communities while in foreign ports.
All told, Scripps vessels are scheduled to complete nearly 470 NSF sponsored days in 2012.